Broadening Participation of Native Americans in Computer Science Using Indigenous Dialogue

Silver Buffalo Consulting is requesting support to begin a dialogue between members of the Native American Science Academy and Western scientists on ways to utilize advances in IT to represent Indigenous science concepts. The immediate goal is to have Native Americans knowledge holders and Western scientists meet and begin a dialogue. The long range goal (beyond the scope of this project) is to develop the IT needed to preserve native science and make it accessible to Native students. An additional result would be the articulation of a set of research problems that would engage Native American students in computing.